REU: Research Experiences for Undergraduates Emphasizing Environmental Chemistry Applications at the University of North Dakota

PI: Kozliak: Institution: University of North Dakota

The Chemistry Division award supports a Research Experiences for Undergraduates (REU) site at the University of North Dakota (UND) for the summers of 2003-2005.
Evguenii Kozliak is the site's program director and Michael Mann from the Department of Chemical Engineering is the Co-Director. Scientists and engineers of the Center for Gas and Gas-Solid Interactions Impacting the Environment (CIGSIIE), Chemistry, Chemical Engineering and Space Studies will serve as REU mentors to eight students, who will each participate in a ten-week program. Students will be recruited from colleges in the Upper Midwest, with particular attention to Native Americans and first generation students resident in the rural communities of the upper Midwest and Western states. Fifteen research projects are described in the area of gas-phase chemistry and related environmental chemistry. Students will conclude the program with a poster presentation at a statewide meeting. The Office of Instructional Development at UND will evaluate the REU site.